Optical Spectroscopy in the Advanced Physics Laboratory at Furman University

9451246 Turner A 1-meter optical spectrograph will be acquired, which will enable students in our advanced physics laboratory to conduct three new experiments: (1) a high-resolution study of the spectra of hydrogen and deuterium, and use of these data to determine the mass of the deuteron and the effects of spin-orbit coupling, (2) a study of the Zeeman effect in Hg, and (3) a study of the continuous and absorption spectra of the sun and of the absorption spectrum of the earth's atmosphere, and use of these data to investigate the Doppler shift and how it can be used to determine the radius of and distance to the sun. These projects, which are modeled after ones at Middlebury College and MIT, will supplement and complement existing exercises in the areas of electronics and atomic and nuclear physics. Data will be analyzed and visualized using the department's NSF-funded computational physics laboratory.